Planning Grant for Sinte Gleska University

The project will conduct an internal evaluation and planning process to assess its STEM educational capacity and vision. Activities will include strategy building sessions with faculty and administrators, consultation with external advisors, and engagement of the cultural community. The project will formulate a strategic plan for STEM instructional improvement.